Elementary, Secondary, and Informal Education: Show-Me Project (renewal)

This project continues the work of the Show-Me Center. The center consists of a Middle School Mathematics Center (University of Missouri) and four Curriculum Satellite Centers (University of Wisconsin, Michigan State University, University of Montana and the Education Development Center in Newton, MA. The goals of the center are fourfold: 1) disseminate information supporting awareness, examination and implementation of comprehensive, standards-based middle school mathematics curricula; 2) develop a leadership infrastructure to support curriculum reform utilizing Show-Me Regional Associates, experienced teacher users of curricula (Show-Me Master Teachers) and district leadership teams to carry the message and work at local levels; 3) provide professional development and teacher renewal. Center staff help school districts design and implement coherent and long-term professional development for teachers organized around standards-based curriculum adoption; and 4) monitor the impact of standards-based curricula on student learning. The Center initiates data collection through the Show-Me Postdoctoral Fellow Program so that the extent and quality of implementation and its effects on student learning and teacher development are documented and disseminated.